Undergraduate Research at the Rocky Mountain Biological Laboratory: Plant Reproductive Biology

This award provides funds to The Rocky Mountain Biological Laboratory to support ten undergraduate students for participation in a Research Experience for Undergraduates Site Program focusing on field studies of plant reproductive biology. Each student will attend the RMBL for ten weeks. Guidance will be provided by supervising researchers in scientific design, project selection and initiation, and project completion. Students will be encouraged to participate in the many research opportunities available at the RMBL, such as formal and informal seminars, interactions with visiting scientists, and exposure to all levels of a field biology community. The RMBL is particularly proud of its success in educating women interested in field biology, and in attracting senior female scientists. Plans for increasing minority student participation are included in this project.